MRI: Development of a High Average Power Ultrafast Laser

This project seeks to develop a high-average power, femtosecond laser system with
capabilities well-beyond what exists anywhere in the world at present.It will generate pulses
with energies of 1-4mJ,with a pulse duration of under 20fs,and at a repetition rate of 10 - 40
kHz.It will also be capable of generating shaped light pulses for experiments in quantum control
of matter,optimizing EUV generation,novel high-resolution microscopies,and micro-
machining.This laser will be used for a wide variety of application experiments which will be
done by the JILA group,and also involving collaborators from the University of Colorado,MIT,
SUNY Stony Brook,UC Berkeley,Colorado State University,Princeton University,and Wayne
State University.Thus,a new,high-performance laser system will be heavily used for a wide
range of optical science and engineering projects.Furthermore,the laser designs will be made
available to the ultrafast laser community through publications,web pages,and technology
transfer to industry.The JILA group has a very strong track record of technology transfer,both
to the scientific and engineering communities and to industry.Most importantly,this project will
also provide an excellent training ground for students in high technology areas such as laser and
optical design,fast electronics,EUV generation,novel pulse shaping technologies,and
mechanical design.